Spreading Problems in Fluid Mechanics

0104935
Miksis

In this proposal, it is planned to investigate both the problem of the
spreading of a liquid along a solid substrate and the spreading of a liquid
along a liquid interface. The Navier-Stokes equations will govern the
motion of the fluids. The investigation of the spreading of a liquid along a
solid substrate is interesting and difficult because of the singularities that
can occur at the contact line. Spreading along a liquid interface is a
challenging problem where multiple free boundaries can exist. Here, in
addition to the liquid/liquid and liquid/gas boundaries, a triple junction can
exist at the liquid/liquid/gas line of intersection. Predicting the dynamics
of these three phase lines is one of the aims of this proposal. We will be
interested in situations where the interfaces are clean and situations where
surfactants are present. Mathematically we are faced with problems having
coupled moving interfaces along which singularities can exits. Both
asymptotic and numerical methods will be used to study these complex
free boundary problems. For example, we will consider the thin film limit
where the complete three-dimensional system of equations can be reduced
to a coupled system of nonlinear evolution equations. We will also apply
the level-set numerical method to solve the complete nonlinear system of
equations.

When a liquid drop is resting on a solid surface, the free boundary of the
drop is characterized by the gas/liquid interface, and the line of contact
between the liquid/gas/solid phases. This three-phase line is usually
referred to as the contact line. It occurs whenever three phases come into
contact. It is a familiar phenomena of everyday life, and can be observed
when one pours oil into a frying pan or in a partially filled wine glass. It
also occurs in many areas of practical interest. Examples are industrial
coating processes, the transport of gas/liquid mixtures in pipes, the
spreading of droplets of medication in the lungs and the spreading of
liquid wastes (e.g. oil or chemicals) on the sea. The latter problem is an
example of a situation where the contact line (refereed to as the triple
junction in this case) occurs at the intersection of a liquid/liquid/gas
interface. Even though the contact line occurs in these many areas, our
understanding of it is very limited. Models are still being developed and
because of the mathematical singularities associated with the behavior of
the solutions in the neighborhood of the contact line, solution techniques,
both analytical and numerical, need to be identified.